Upgrading of the Computational and Theoretical Facilities in Geochemistry at Yale

9316486 Lasaga This award provides one-half the funding required to purchase computer equipment to be installed, operated and maintained in the Department of Geology and Geophysics at Yale University. The University is committed to providing the remaining funds necessary for the equipment acquisition. The computer system will be used primarily by the geochemistry group at Yale who are engaged in computer-intensive research on modeling of erosion and geochemical cycles, quantum mechanical calculations of silicates, kinetics of mineral dissolution and surface adsorption, molecular dynamics of silicate glasses and melts, Monte Carlo simulations of crystal growth and solution under natural conditions, and studies of chemical reactions in sedimentary basins and ore deposits. ***